Algebraic and Geometric Topology

We investigate the classification of compact topological and smooth
manifolds, as well as embedding problems - knot theory. We use both new
and classical homological, geometric and analytic techniques such as
algebraic L-and K-theory, controlled topology, operator theory and Von
Neumann signatures. One problem attacked, from differential geometry, is
to determine whether almost flat manifolds bound compact manifolds. New
knot invariants, defined during the prior grant, are continuing to reveal
new and unexpected knotting phenomena and will be used to further
investigate the classification of topological four manifolds within a
fixed homology type. These invariants will also be applied to further
compute the topological concordance group of knots, and to the rich
structure of three manifolds as seen through descending series of the
fundamental group. Another problem is to compute and apply characteristic
classes for combinatorial vector bundles, an initial step in understanding
a new category of manifolds - the combinatorial differentiable manifolds
of Gelfand-MacPherson. A final topic is the computation of algebraic K-
and L-theory using controlled topology and applying these computations to
manifolds with fixed fundamental group.

A n-dimensional manifold is a set of points which is locally modeled on an
n-dimensional linear space. For instance a surface is a locally
2-dimensional linear space, such as a sphere, or the surface of a donut
(torus). The principal problem of geometric topology is the
classification of manifolds. In differential topology we also ask how
many ways we may do calculus on a given manifold, addressing the
uniqueness question. The fundamental group of a manifold gives an
algebraic structure to the collection of all loops in the manifold, thus
providing a pathway to algebra. The researchers focus on both high
dimensional and low dimensional manifolds. Four dimensional manifolds are
of particular interest as the results and techniques in this dimension
manifest the harmony of the algebraic techniques which have found success
in high dimensional manifold topology and the geometric techniques which
prevail in dimension three. Investigating the foundations of manifold and
knot theory fundamentally underpins our understanding of geometry,
algebra, physics and differential equations. Additionally, knot theory
plays a growing role in string theory, quantum field theory and the study
of DNA.

---------- Forwarded message ----------
Date: Fri, 11 May 2001 14:27:02 -0500 (EST)
From: "James F. Davis" <[email]>
To: Christopher Stark <[email]>
Cc: [email]
Subject: Re: NSF proposal recommendation

Hi Chris,

Kent and I were very happy to here that you plan to recommend that
our NSF proposal be granted. However, some of circumstances have changed
since we wrote the proposal, so I thought I should discuss them with you
in case the budget is affected. Sorry for the delay getting back to you,
I was visiting the University of Chicago this week.
We asked for summer money to support three graduate students: Karl
Bloch, Diarmuid Crowley, and Tae-Hee Kim. Well, I am happy to report
that Diarmuid Crowley has been named a Clay Mathematical Institute
Lift-Off Mathematician

http://www.claymath.org/researchers/index.htm

and will receive some money from them this summer (provided some visa
problems work out.) He is suggesting to Clay that they award him the
money from June 13 to July 27. After Aug 1, I believe he will be
supported by Max Planck Institute in Bonn. However, he could still use
NSF money, for example, he is attending the 3-week School on
high-dimensional manifold topology in at the ICTP in Trieste, Italy,
mostly at his own expense. Please advise us if it is necessary to
rebudget and return the money allotted to Diarmuid.

The second change is with regard to my proposed REU student, Matt
Cecil. Matt Cecil worked with me as an REU student last summer (partially
supported by NSF funds), and continued throughout the academic year. He
is attending UCSD as a math graduate student in the fall. However, due to
mathematical reasons and personal reasons, he will not be an REU student
with me this summer. So the question again is - what to do with the money
allotted to him? I talked to our chair, Dan Maki, and he said that he
could use the money to help undergraduate research projects connected with
industry. Dan has many industrial contacts throughout the state of
Indiana and had lead such projects for several years. The money would
primarily go to student travel expenses.

So, Chris, please advise on whether we should give some money back to
the NSF and rebudget, or just go with the modifications outlined above.

Jim